Creativity Support Tools Workshop

IIS-0527109
Ben Shneiderman <[email]>
University of Maryland - College Park
Creativity Support Tools Workshop

The Workshop on Creativity Support Tools, to be held in June 2005, focuses on the discussion of the design of software tools that promote, accelerate, and facilitate creativity in sciences, engineering, medicine, knowledge work, humanities research, the arts, and beyond. The workshop will bring together 25 - 30 leading researchers from various relevant disciplines such as computer science, information systems, and psychology from academic, corporate and government research programs, and will also include artists, architects and other creative individuals. The intellectual merit of this workshop and ensuing work is the common understanding how the various constituent groups can work together to (1) accelerate the process of disciplinary convergence, (2) promote rigorous research methods, and (3) increase the ambitiousness of research programs. The broader impact of the workshop stems from the fact that creativity is a key determinant of scientific, engineering, medical, cultural, and economic advancement. Therefore, improved creativity support tools are likely to bring benefits to many fields, and can raise the pace and quality of creative work in many areas. Workshop results will be distributed via the workshop web site (http://www.cs.umd.edu/hcil/CST) and publications in relevant newsletters, journals and conferences.